A Fully Discrete Framework for the Adaptive Solution of Inverse Problems

Inverse problems like parameter estimation, data assimilation, optimal
engineering design, and optimal control of large scale systems governed by
partial differential equations, are of considerable importance in many
fields including atmospheric science and oceanography, aerospace
engineering, and fluid and structural mechanics.

State-of-the-art solvers for large scale partial differential equations
adaptively refine the time step and the mesh, and adjust the computational
pattern according to the features of the solution. Adaptivity is necessary
to control the numerical errors introduced by temporal and spatial
discretizations and to preserve the qualitative features of the solution
(e.g., avoid the formation of spurious wiggles). In contrast, most inverse
problems to date have been solved using non-adaptive methods (e.g., fixed
grids and timesteps).

This project develops a fully discrete framework for solving inverse
problems in the context of adaptive models. The framework fills the gap
between the state-of-the-art adaptive methods used in (forward)
simulations and the computational tools currently available for the
solution of inverse problems. The specific research objectives are to
develop discrete algorithms for inverse problems with models that employ
refinement of the spatial discretization, and adaptive time stepping, to
guarantee that the discrete inversion process leads to convergent
numerical approximations, and to control the accuracy of the inverse
solution.

The results of this work are general algorithms and methodologies that
will advance the field of inverse problems by developing the capability to
adapt time steps, grid sizes, and computational patterns, such as to
control the quality and accuracy of the inverse solutions. These results
have the potential to impact any mature
field which relies on adaptive simulations, such as data assimilation in
atmospheric sciences, oceanography, and environmental sciences; optimal
control of flows, and optimal engineering design.

The algorithmic and software tools developed during this research will be
largely disseminated through specialized journals and conferences. This
project provides an excellent opportunity for training graduate students in
the areas of inverse problems and adaptive computations.